MRI: Development of a Time Projection Chamber and Photo-Multiplier Array to Measure Neutrino Interactions in the MicroBooNE Detector

PROPOSAL NUMBER: 0821316
INSTITUTION: Yale University
NSF PROGRAM: PHY ? ELEMENTARYPARTICLE ACCEL USER
PRINCIPAL INVESTIGATOR: Fleming, Bonnie

TITLE: MRI:Development of a Time Projection Chamber and Photo-Multiplier
Array to Measure Neutrino Interactions in the MicroBooNE Detector

This proposal describes the development of the Liquid Argon time projection chamber (TPC) and Photo-multiplier Tube (PMT) array as a major part of the MicroBooNE experiment at Fermilab. It is with the development of the MicroBooNE TPC and PMT array that the nature of the intriguing low energy events recently observed by the MiniBooNE experiment may be resolved. In addition, the R&D on the Liquid Argon TPC will provide important information and experience for developing the larger systems that will be necessary to fully elucidate the nature of the neutrino sector in future experiments at Fermilab and DUSEL.